Regional Flood Hazard Analysis

The work will focus on regional (as opposed to single site) flood frequency analysis with the purpose of estimating flood quantiles based on information available at many sites in a region. One specific objective is to study in detail the characterization of floods which exhibit correlations among the sites of the region. The analytical work will be carried out to allow both spatial dependence and parametric structure to be considered, and to assess the utility of historical/paleo-data in a regional setting. The potential gains of regional analysis over single site analysis will be determined by comparing various simulation models. Models that have features in common and that are compatible with real flood data will be identified and corresponding applications will be made.